Efficient and Performance Guaranteed Methods for Order Reduction and Analysis of VLSI Interconnect Circuits

The advance of high-speed deep-submicron VLSI technology requires chip
interconnect and packaging to be modeled by distributed circuits. Such a
detailed modeling level eventually results in large scale linear circuits to
be analyzed. Thus, the research objective is to develop new circuit order
reduction approach to evaluate the circuit performance and characteristics
in a reasonable time period and with a guaranteed performance, as required
by real design practice.

This project focuses on the following tasks:
a) Develop new order reduction approaches that provide guaranteed performance;
b) Derive correspondingly high efficiency numerical methods;
c) Investigate the methods of maintaining preferred characteristics in the
reduced order system as well as related implementation issues;
d) Investigate wavelet method application in model order reduction and
analysis; and
e) Contribute to graduate education at UT- Dallas and UNC-Charlotte.

The expected research results will provide efficient and performance
guaranteed methods for order reduction and analysis of VLSI interconnect
circuits, and their corresponding algorithms and software for simulation
test. It will also contribute to engineering and science aspects by the
expected research results and software, as well as to graduate education.